CISE Research Instrumentation

A file server will be provided for researchers at Columbia University for research in the Department of Computer Science. This equipment is provided under the Instrumentation Grants for Research in Computer and Information Science and Engineering program. The research for which the equipment is to be used will be in the areas of system building, especially software development environments and programming languages.